Exploring microbial life and biogeochemical function in offshore freshened groundwater systems beneath the New England Shelf

Healthy oceans support economic stability, coastal communities, food security, and sustainable management of marine resources. Yet one of Earth's largest and least understood ecosystem lies hidden beneath the sea floor, where microorganisms survive under extreme conditions of limited energy, high pressure, and scarce nutrients. This project investigates offshore freshened groundwater systems beneath the New England Shelf, a largely unexplored environment that links terrestrial, marine, and subsurface ecosystems. By studying how microbial communities survive and function in these hidden habitats, this project improves understanding of processes that influence nutrient cycling, water quality, and Earth's long-term biogeochemical systems. Using samples collected during a recent ocean drilling expedition, this project examines the diversity, activity, and ecological roles of microorganisms living across subsurface salinity gradients. This project also trains undergraduate graduate and postdoctoral students, promotes workforce development, and makes all resulting data publicly available to support future discoveries in ocean sciences.

Offshore freshened groundwater reservoirs represent a poorly understood interface linking terrestrial, marine, and subsurface environments. Despite growing recognition of their global occurrence, the microbial ecology and biogeochemical functions of these systems remain largely unexplored. This project leverages sediment and porewater samples collected during the International Ocean Discovery Program (IODP)-NSF Expedition 501 on the New England Shelf to investigate how salinity gradients influence microbial community structure, metabolic potential, and ecosystem function in subseafloor environments. This project employs an integrated multi-omics framework combining metagenomics, metabolomics, viral ecology, and geochemical analyses to characterize microbial communities across contrasting salinity regimes. Metagenomic analyses resolve taxonomic composition, functional gene inventories, and metagenome-assembled genomes, providing insight into the evolutionary and metabolic strategies that enable microbial persistence in energy-limited subseafloor habitats. Metabolomic profiling, coupled with geochemical measurements, identifies active biogeochemical pathways and microbial transformations occurring across the freshened groundwater-marine transition zone. This project further incorporates viral diversity and viral-host interaction analyses to evaluate the role of viruses in shaping microbial community structure, metabolic function, and carbon and nutrient cycling within the deep biosphere. Together, these complementary datasets provide the first systems-level assessment of microbial ecology in offshore groundwater environments and establishes a mechanistic understanding of how salinity gradients influence microbial adaptation and biogeochemical processes beneath the seafloor. By advancing knowledge of microbial life in one of Earth's least explored biomes, this research strengthens the scientific foundation of deep biosphere studies and improves understanding of the role of subseafloor microorganisms in global biogeochemical cycles.